SBIR Phase I: Revenue Management in a dynamic and stochastic network environment

This Small Business Innovation Research (SBIR) Phase I project will investigate the inventory allocation of revenue management (RM) systems. As a new way of approaching the supply/demand concept, RM can be best understood as the set of actions leading to revenue maximization by efficiently utilizing the available perishable resources. Phase I will: (i) devise a highly optimized dynamic inventory allocation algorithm that can be easily integrated in a more general RM framework; and (ii) build a prototype of decision making software implementing the algorithm. The experimental policy will be based on a general RM model that encompasses the dynamic, stochastic, and network characteristics of the problem. Phase I will use state-of-the-art mathematical (approximate dynamic programming and stochastic mathematical programming) and database tools.

Potential commercial applications of the work are expected in a diverse set of industries, ranging from the transportation and hospitality industries to telecommunications, health care, legal services, entertainment, and government organizations. The new approach is expected to lead to 2%-3% improvements over state-of-the-art RM systems, and this will translate to considerable increases in revenue especially in highly competitive and highly constrained arenas.